ME: Metabolic Engineering of Isoprenoid Production

The goal of this project is to develop a host strain and
expression system that will allow high-level production of natural
and un-natural terpenoids in Escherichia coli. The specific aims
of this project are to: (1) maximize the production of the
isoprenoid precursor isopentyl diphosphate in E. coli by
expressing the genes for either the mevalonate-dependent or the
mevalonate-independent synthesis pathway using the metabolic
engineering tools developed in the Principal Investigator's
laboratory; (2) maximize production of the primary precursors to
the terpenoids: geranyl diphosphate, farnesyl diphosphate, and
geranylgernyldiphosphate; (3) introduce into E. coli the genes for
specific classes of terpenoids and optimize production of these
"natural" terpenoids; and (4) use laboratory evolution of terpene
cyclases to produce novel terpenoids or to change the distribution
of products made by terpenoid biosynthetic enzymes. This project
is part of an Interagency Activity in Metabolic Engineering and is
to be funded by the Office of Naval Research (ONR) and three
Programs within NSF.